Fast Adaptive Composite Grid Method For Mesh Refinement

This project is concerned with the further development, analysis, implementation, and application of fast adaptive composite grid method (FAC) for the solution of partial differential equations. The FAC method is a discretization and solution method designed to achieve efficient local resolution by systematically constructing the discretization based on various regular grids and using them as a basis for a fast solution. Software will be developed enabling FAC to handle systems of equations and three dimensional problems.